Design Projects for Persons with Disabilities

9730575 Glower This project supports senior design projects by electrical engineering students at North Dakota State University which will aid the disabled. These projects are on the design of software and/or hardware on topics such as force measurements for amputees, foot stabilization, a wheelchair for the obese, a walker for children, an ultrasonic cane, a seeing pad, a voice amplifier, and a voice spectrum display. ***